RIA: The Role of the Interface and the Interphase Region on the Toughening of Highly Crosslinked Epoxies

The research to be performed on this RIA award will investigate the role of the interface and interphase region on the toughening of highly crosslinked epoxy polymers. Two distinct approaches will be examined through the study of rubber-modified epoxies and thermoplastic-modified epoxies. The results of these studies will enable the development of highly crosslinked epoxies with improved quality and reliability.